Investigations in Superstring Theory

The objective of this three-year U.S.-Yugoslav cooperative research project in theoretical high energy physics between Branislav Sazdovic of the Belgrade Institute of Physics and Antal Jevicki of Brown University is to carry out fundamental research on the structure of superstring theory which is theory concerning the unification of physical interactions. The investigators' methodology includes using both massless and massive background fields. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.